An Algebraic Approach to Supersymmetric Field Theories and M/Superstring Theory

Research in theoretical elementary particle physics will focus on
M/Superstring Theory and related supergravity theories. The M/Superstring
Theory provides us with the only known consistent framework for
reconciling quantum mechanics with Einstein's theory of gravity and is a
very important, promising candidate for a successful unified theory of all
the forces of nature.The underlying fundamental symmetries of
M/Superstring Theory will be investigated and these symmetries will be
used to study the consequences of the theory such as the elementary
particles that the theory predicts. Mathematical techniques that are
essential for carrying out this program will be developed further. At
certain low energy regimes, M/Superstring Theory can be effectively
described by "supergravity" theories, which will also be studied.